Network Probe Platforms for Metacenter Network Performance Testing: Cornell Theory Center

9320650 Kalos This award funds an Iris Indigo workstation to gather network performance measurements for traffic between the Cornell University Supercomputer Center and the three other NSF-funded supercomputer centers. The centers have joined together to form a national Metacenter, to be linked by a high-speed network called the National Computational Environment. The dedicated probe platform supported by this award provides a mechanism for testing, measuring and improving network performance over the existing and future communication links. Duration of the award is one year. ***